Maize Genetics Society Meeting will be held on March 19-22, 1992 in Asilomar, CA.

The maize meeting will be held on March 19-22, 1992 at Asilomar, CA. The meeting will cover a broad range of topics in cytogenetics, cytoplasmic inheritance, RFLP mapping, molecular genetics, transposable element behavior, gene identification and cloning, development, tissue culture and mapping. The meeting provides a unique opportunity for researchers of different backgrounds to share techniques and ideas, and for students to meet the experts and founders in the field of maize genetics.***//